The Arithmetic Cube System Prototype

The goal of this project is to build a prototype of the Arithmetic Cube, which is a high-speed programmable VLSI processor for solving linear digital signal processing problems. The structure of the cube is based on algorithms for the discrete Fourier transform of small sets of points, which require small numbers of multipliers.